CISE Research Instrumentation

A Lisp workstation environment upgrade will be provided for researchers at Penn State University for research in the Department of Computer Science. This equipment is provided under the Instrumentation Grants for Research in Computer and Information Science and Engineering program. The research for which the equipment is to be used will be in the area of constructing parallel implementations for Knowledge Representation (KR) languages.